Photophysical Investigation of Polymer Structure in Multi- component Polymer Systems: Blends, Complexes and Micelles

Photophysical techniques, including photostationary and transient fluorescence and transient fluorescence depolarization, are the new tools to study polymer chain structure in three classes of multicomponent polymer systems. Polymer blends containing a crystallizable component will be examined with particular attention to the influence of constraints imposed by lamellar boundaries on structure in the amorphous regions. Hydrogen bonding, hydrophobic and stereotactic interactions will be characterized in complexes formed in aqueous and non-aqueous solution. Micelles formed by block copolymers in mixed selective solvents will be studied with particular attention to the structure of the core. Dyamic light scattering will be used as a complementary tool to characterize structure in both the complex and micelle studies.